Geometry from Physics: Calabi-Yau Spaces and the Positive Mass Conjecture

Abstract

Award: DMS-0505767
Principal Investigator: Anda Degeratu

A variety of questions in geometry arise from
physics. Consistency requirements in superstring theory suggest
that we live in a 10-dimensional world, where the extra six
dimensions must take the shape of a Calabi-Yau geometry. For the
past 20 years, this has led to a tremendous effort on the part of
mathematicians and physicists to understand Calabi-Yau spaces,
and the various questions which emerge from their role in string
theory. On the other hand, more classical areas of physics such
as general relativity continue to motivate interesting questions
in Riemannian geometry. In particular, extending the Positive
Mass Conjecture has important implications for geometric analysis
and string theory.

The first two projects in this proposal examine the geometry of
Calabi-Yau spaces. In studying such objects, one has to take into
consideration singular Calabi-Yaus. One way to deal with
singularities is to resolve them. As a result, the geometrical
structure undergoes changes. The goal of the first research
project is to give a complete characterization of the changes
which can occur under crepant resolutions. In contrast to more
traditional algebraic methods, the proposed techniques for this
study involve an interplay between algebraic and analytical
methods. Another way to deal with Calabi-Yau singularities is to
analyze them from the perspective of various string theory
dualities. In the second project, the PI proposes to study the
taxonomy of Calabi-Yau spaces for which heterotic/F-theory
dualities hold. Along the way, it is hoped that this study will
give a geometrical interpretation to a new conjecture of McKay
which relates the exceptional simply-laced Dynkin diagrams to the
Monster group and its offspring. The focus of the third project
is the Positive Mass Conjecture. In the context of general
relativity it has been proved that the total mass of an isolated
system is never negative, provided that the sources of the
gravitational field consist of matter with nonnegative local mass
density and that spacetime is asymptotically flat. Witten's proof
is based on the analysis of the Dirac operator along
three-dimensional spacelike submanifolds in spacetime. The goal
of this research is to extend Witten's approach to prove the
Positive Mass Conjecture in any dimension, in particular for
non-spin manifolds.

To summarize, an assortment of questions in mathematics lie at
the interface between geometry and physics. This proposal focuses
on geometry problems which do not fit nicely into one particular
field, but require a variety of techniques from different
branches of geometry. Many of these problems come from physics,
where ad-hoc methods need further development.